CAREER: Thin shells - problems in nonlinear elasticity and fluid dynamics

Lewicka
DMS-0846996

A unifying theme in this project is the asymptotic behavior
of given equations as the domain approaches a "degenerate" region
in the limit. The considered problems are nonlinear variational
or partial differential equations, and the degeneracy in question
can take various forms: loss of dimension, loss of regularity, or
unboundedness. The first set of questions relates to the
mathematical theory of nonlinear elasticity, which studies large
mechanical deformations of three-dimensional elastic bodies. The
investigator undertakes a long-term research program, with the
scope of: deriving lower-dimensional shell theories through the
methods of Gamma-convergence and understanding their connections
with the geometry of the mid-surface, analyzing the
(infinitesimal) isometries of surfaces and the effects of
rigidity on the derived theories, studying nonlinear phenomena
such as buckling and blistering for a given shell under
compression (one application is related to plant growth). The
second set of questions in this project relates to fluid
dynamics. Boundary irregularities of various structures and
scales are considered in the limit when the boundary behavior
becomes degenerate. Other problems concern traveling fronts in
combustion in unbounded channels, and the dynamics of solutions
with large initial data under the Navier boundary conditions in
thin three-dimensional shells.

Because elastic thin (or otherwise "degenerate") objects of
various geometries are ubiquitous in the physical world, the
precise understanding of laws governing their equilibria has many
potential applications. For example, many growing tissues
(leaves, flowers, or marine invertebrates) exhibit complicated
configurations during their free growth and one would like to
reproduce them with man-made means. A related long-standing
problem in the mathematical theory of elasticity is to rigorously
predict theories of such lower-dimensional objects starting from
the nonlinear theory of full three-dimensional objects. For
plates, a very recent effort has lead to rigorous justification
of a hierarchy of such theories, depending on the magnitude of
the applied forces and resulting in stretching, crumpling,
bending, or a combination of these. For shells (when the
mid-surface is curved), despite extensive use of their ad hoc
generalizations in the literature and engineering applications,
much less is known from the mathematical point of view. The
investigator identifies several nonlinear problems in continuum
mechanics of solids and fluid dynamics, naturally posed in
specific degenerate domains, with the intention of rigorously
understanding the behavior of the system based on general
principles. At the heart of the program are interesting
connections between calculus of variations, differential
equations, geometry, material science, fluid dynamics, numerical
analysis, and even biology. They have a potential to deliver
useful observations in e.g. structural mechanics, while
integrating the goal of exposing scientific results to a broader
community at various education levels.